Postdoctoral Research Fellowships in Chemistry

Dr. Geoffrey W. Coates has been awarded an NSF Postdoctoral Research Fellowship in Chemistry. Dr. Coates received his doctoral degree from Stanford University under the supervision of Professor Robert Waymouth. Dr. Coates will continue research at the California Institute of Technology under the sponsorship of Professor Robert Grubbs. His postdoctoral research will target applications of chiral olefin metathesis catalysts in organic chemistry. In particular, he will concentrate on the development of chiral ruthenium-based carbene complexes and their application as catalysts for asymmetric synthesis. The development of new organometallic reagents and catalysts is important to the synthesis of new molecules of biological importance such as optically active helical complexes. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph. D.s and attract them into meaningful careers in contemporary chemical research and teaching.